U.S.-Indo Collaborative Research: Logic Programming AnalysisTransformations and Principles, Award in Indian and U.S. Currencies

9416687 KAPUR Description: This proposal will provide linkage support for a collaboration between Deepak Kapur, Department of Computer Science, State University of New York, Albany and R.K. Shyamasundar, Theoretical Computer Science Group, Tata Institute of Fundamental Research (TIFR), Bombay, India. The focus of this project is the study and analysis of logic programs with emphasis on termination of sequential and concurrent programs. The initial theoretical investigations will concentrate on proving termination of a logic program for a query, developing semantic- preserving transformations to improve efficiency of logic programs, and identifying conditions under which the occur-check can be omitted in a logic programming language interpreter. Software tools will be developed to implement theoretical results and are expected to promote the design of elegant and efficient logic programs. Scope: The P.I.s are well-known senior scientists with complimentary research interests. Kapur and his group are accomplished in the area of automated deduction and term rewriting systems and have developed an extremely powerful theorem prover, Rewrite Rule Laboratory. Shyamasundar is well- known for his research in theoretical computer science, particularly in the area of logic programming and semantics of real-time and concurrent programming. Computer science is an area of exceptional strength in India and many mutual benefits can be expected to result from this collaboration. ***